Integration of a Fourier Transform Infrared Spectrometer into the Chemistry Curriculum

The Chemistry Department at Austin Peay State University has recently acquired a microprocessor-interfaced Fourier Transform Infrared (FTIR) Spectrometer which is being used to enhance undergraduate instruction by integrating FTIR applications into several courses in the curriculum. Specifically, the system is used in instrumental methods of analysis and organic chemistry courses for compound identification and in physical chemistry to study the properties of compounds.